Asymptotic Problems in Fluid Mechanics and Gas Dynamics

This proposal is about the study of some asymptotic problems
in Fluid Mechanics and Gas Dynamics.
Asymptotic problems arise when a dimensionless
parameter epsilon goes to zero in an equation describing the motion
of some type of fluid (or any other physical system). Many mathematical
problems are encountered when we try to justify the passage to the limit,
which are mainly due to the change of the type of the equations, the
presence of many spatial and temporal scales, the presence of boundary
layers (we can no longer impose the same boundary conditions for the
initial system and the limit one), the presence of oscillations in
time at high frequency ....
In this Proposal, the PI intends to study (among other problems)
the hydrodynamic limit of the Boltzmann equation, the
compressible-incompressible limit,

These asymptotic problems allow us to get simpler models at
the limit, due to the fact that we usually have
fewer variables or (and) fewer unknowns. This simplifies
the numerical simulations and improves our understanding of
the prevailing phenomenon when the parameter is small, in fact,
instead of solving the initial system, we can solve the limit
system and then add a corrector.